1995 Gordon Research Conferences on Catalysis

ABSTRACT Harold Kung Funds are provided to subsidize travel and subsistance for speakers, junior faculty, postdoctoral associates, and graduate students to attend the 1995 Gordon Research Conference on Catalysis to be held June 25-30, 1995, in New London, NH.